A New Method of Time-Temperature Modeling of Sedimentary Basins

This project will integrate a new laboratory technique for identifying organic constituents, applying newly found kinetic parameters for these constituents, developing a new organic maturation model on the basis of the kinetic parameters, and finally integrating the maturation model to develop a predictive tool for modeling basin evolution and hydrocarbon generation. The ability to transfer the understanding of coal maturation to the maturation of kerogen, which is the most common source for oil and gas, will be especially useful. Both researchers have extensive research backgrounds and experience in the chemistry and kinetics of coal reactions. They have significant publication records, funding support, and instrumentation and should be able to complete this project successfully.